Louis Stokes South Carolina Alliance for Minority Participantion (LS-SCAMP)

Louis Stokes South Carolina Alliance for Minority Participantion (LS-SCAMP)

The Louis Stokes-South Carolina Alliance for Minority Participation (LS-SCAMP) has
become a keystone for undergraduate science, mathematics, engineering and technology
(SMET) retention and a catalyst for degree completion within the state. Committed
leadership from top- level administrators is paramount to the successful
implementation of the goals proposed herein.The new LS-SCAMP Phase I will be lead
by South Carolina State University (SCSU),nationally ranked for African American/Minority
SMET degree completion and the largest producer of underrepresented minority SMET
degrees in the state. Currently all of SCSU's SMET baccalaureate degree programs are
ranked nationally as a result of African- American/Minority degree completion. Biology
, Mathematics and Engineering Technology are ranked 4 th in the nation while Computer
Science is ranked 13 th and Physics is ranked 21 st . LS-SCAMP includes all seven of the
HBCUs in the state of South Carolina and represents a new beginning and a new era of
support for the success of underrepresented minorities in SMET. To meet the strong
demand for higher education and to combat the persistent barriers toaccess, the new
LS-SCAMP will build on the foundation established during the prior SCAMP phases.
Specifically the following Phase I goals will be achieved:

1. Increase underrepresented SMET baccalaureate degree production at a rate that is
40% higher than the national SMET degree rate.
2. Strengthen and expand undergraduate research opportunities for SMET students.
3. Provide opportunities for SMET students to develop knowledge and skills that
will improve their qualifications and enhance their preparation for graduate
studies in SMET fields.
4. Build a transfer bridge to increase by 100% SMET majors from 2-year
institutions.

The outstanding track record for the production of minority graduates at many of
the Alliance institutions, the unprecedented level of support for the AMP program in
South Carolina and the new statewide infrastructure, will allow the goals of Phase I to
be met.